Mathematical Sciences: Weekly Dissipative Predator/Prey Systems

9526961 Schaffer The investigator and his colleagues study predator-prey models as perturbations of Hamiltonian systems. Predation is an important factor in natural and man-made ecosystems. Recently, it has been observed that two species predator-prey models subject to seasonal forcing exhibit interesting behaviors in the presence of seasonal variations in the environment. Most interesting is the fact that for certain parameter regimes there exist infinite numbers of coexisting attractors corresponding to oscillations of different period and amplitude. In the face of continuing perturbations from without, such a circumstance promotes the likelihood of violent and unpredictable variations in system dynamics, i.e., in the densities of predators and victims over time. Put another way, the mathematics suggests that small variations in ambient conditions, for example, year-to-year variations in the climate, can induce enormous and wholly unexpected changes in species abundances. Interpreted biologically, the parameter regimes in question correspond to prey populations the densities of which are predator-limited, i.e., to the circumstance in which predators keep victim densities well below their carrying capacity. That such regulation is not unusual is evidenced by the fact that victim populations often explode when "released" from predation. In agricultural systems, such irruptions can be the unintended (and economically catastrophic) consequence of pest eradication programs. From a mathematical viewpoint, strong regulation of herbivore populations by their predators corresponds to "weak dissipation." Previous investigation of the two species model suggests that such situations can usefully be viewed as perturbations of the Hamiltonian limit, in which case the dissipation is, perforce, zero. Because these models include seasonality, the equations are "nonintegrable" with the consequence that the topology phase space is extraordinarily complex. The mat hematical questions thus relate to which aspects of the Hamiltonian topology are preserved under weak dissipation and to the rapidity with which these features are eradicated as dissipation levels increase. The present project seeks to extend the basic mathematical model of predator-prey interactions in several directions. The generalizations include increasing the numbers of interacting species and examining the consequences of weak dissipation in the context of a patchy environment, for example, cultivated fields distributed among old fields and woodlands. In addition, the investigator and his colleagues address agroeconomic issues - namely, the feasibility of substituting generalist arthropod predators for insecticides as a principal means of controlling pest species. The conventional ecological wisdom is that given sufficient understanding of predator requirements, such a substitution is both feasible and desirable. In fact, the history of modern agriculture is nothing if not the story of increasing victim carrying capacity with the consequence that effective pest control by predation would necessarily correspond to weak dissipation. The challenge, therefore, is to devise management policies that allow for the effective control of economically significant pests and, at the same time, avoid an increased potential for devastating outbreaks.